Summer Student Program

In 1988 12 high school juniors, selected from a nationwide group of applicants, will conduct independent research projects as apprentices for 8 weeks in the summer under the direct supervision of members of the Jacksons Laboratory's scientific staff. This program has been in operation since 1949. Working in their sponsors' laboratories, the students conduct projects that involve original research within the scope of their respective sponsors' ongoing research programs. The student gain experience in all aspects of research including designing a project, implementing the research plan, interpreting data, and reporting the research results both orally and in writing. The students' research participation experience will be supplemented by attending meetings of their respective laboratory groups and by after- dinner research presentations and discussions at the student residence by sponsors and student.